Combined Workshop Support

This project provides support for two workshops at the National Science Foundation in
August 2003, a workshop August 5-6, 2003 addressing problems of on-going placement issues for students in the Scholarships for Service (SFS) program and a workshop August 7-8, 2003 addressing national cybersecurity workforce needs and educational innovation. It includes pre-, post-, and onsite support for travel and lodging planning and workshop logistics and for post-workshop support in editing and disseminating workshop results. This project is important because it will allow the experiences of current institutional awardees to inform and improve the framework governing the future awards in the SFS program. It will allow society to fully benefit from a more secure computing infrastructure by ensuring that qualified graduates are more properly and efficiently placed in government service.